POWRE: Regulation of Acetylcholine Receptor Gene Expression in the Nervous System

98-06206 MELNIKOVA. The synapses, sites at which information is transferred between cells in the nervous sytem, are critical for normal funciotning of the brain. Numerous lines of evidence suggest that the production ("expression") of the proteins ("receptors") of nerve cells (neurons) which are responsible for sensitivity to the messenger molecules ("neurotransmitters") through which neurons communicate is essential for proper synapses to grow. Thus understanding what regulates this receptor expression if important for understanding how the nervous system gets wired up. Dr. Melnikova will study certain components (called "subunits") of one of the more important neurotransmitter receptors, that responsible for the sensitivity to the chemical "acetylcholine." She will determine which molecules inside the cell ("transcriptional regulatory units") are responsible for regulating the production of the receptor subunits, and how exactly they operate within the cell nucleus. This POWRE award will promote Dr. Melnikova's career as a research scientist by allowing her to learn the molecular biological techniques needed for studies of gene expression, key techniques in a key area of current research.